Connecting Texas Community and Technical Colleges to Internet

9521987 Dickson This project connects eleven Texas community and technical colleges to the Internet. They are: Angelina College Northeast TX Community College Cisco Junior College Paris Junior College Frank Phillips College South TX Community College Grayson County College Texarkana College Kilgore College TX State Technical College - North Central Texas College Harlingen Faculty and students at the schools benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.